RUI: Norfolk State University's Nuclear and Particle Physics Research Participation at Jefferson Lab

This RUI program focuses on the development of a new detector
facility, the Forward Electron Tagger (FET), in Hall B at the Thomas
Jefferson National Accelerator Facility. The main thrust of the
research, using the FET, involves studies of the structure of mesons
(meson spectroscopy) and the electromagnetic polarizabilities of
charged pions. Our goal is a better understanding of the behavior of
QCD (specifically, confinement), investigating the properties of
gluons and simple arrangements of quarks (mesons). The FET, in
conjunction with the large acceptance spectrometer (CLAS) in Hall B,
will allow the study of "photoproduction" using "almost real"
virtual photons via electron scattering at very small forward
angles. The proposed work will enhance the existing research
program of the Nuclear and Particle Physics group at Norfolk State
University and will provide an excellent opportunity for
undergraduate student involvement at the forefront of research in
nuclear and particle physics.